NRI: INT: Agile and Dynamic Interactions for Mobile Manipulation

This grant supports research into developing robots that can safely and efficiently work alongside people in crowded spaces, such as warehouses, homes, hospitals, and stores. The goal of the project is to improve quality of life, especially for the elderly, and advance national prosperity. Working in crowded spaces means that the robot comes into direct physical contact with humans and objects, such as doors, shelves, and wheelchairs. Safety is therefore of paramount importance, and the robot needs to give way to humans while also helping them. The robot's interactions with people and objects are often dynamic in nature. For example, a robot may need to physically support a stumbling person while guiding them by the hand, or it may need to use the weight of its own body to open a heavy door. Dynamic interactions like these are beyond the current capabilities of robots. The project uses a new type of robot that balances on a single ball while being able to safely interact with people. The award performs fundamental research into dynamic interactions, by humans and robots, for accomplishing challenging tasks in an efficient, robust, and safe manner. The project provides a deeper understanding of how humans interact with their surroundings, which can also be used in the future for improving ergonomic designs and prosthetic arms. The research team is also developing new algorithms, designs, and controllers for collaborative and assistive robots, which have the potential for widespread societal benefits.

Robots capable of safe dynamic interactions, with continuous adaptation and fast reactions, represents a paradigm shift from current approaches. The research provides an end-to-end study of full-body dynamic interaction tasks. The research contributes a series of human subject studies that will provide knowledge of human dynamic interactions. It also develops new dynamic interaction models and novel methods for planning, machine learning, and real-time control of dynamic interactions. To make this research possible, the research team will be utilizing a unique dynamically stable and agile mobile manipulator: the Carnegie Mellon University ballbot. The person-size ballbot locomotes on a single ball wheel, providing omnidirectional motion with intrinsic compliance, and is equipped with two human-scale 7-degree-of-freedom arms with hands. Research contributions to dynamic interaction, planning, learning, and control are demonstrated on this robot platform and rigorously evaluated through a diverse set of integrative tasks, including cooperative carrying, maneuvering a manual wheelchair, cooperative task teaching, sit-to-stand maneuvers, and dynamic navigation in cluttered spaces.